US-France Cooperative Research: Cold Atom Dissertation Enhancement

0334050
Holland

This dissertation enhancement award supports US-France cooperative research in theoretical atomic, molecular and optical physics and involves graduate student Joshua N. Milstein and his advisor, Murray J. Holland, of the University of Colorado and Christophe Salomon at the Laboratoire Kastler Brossel, Ecole Normal Superieure (ENS) in Paris. The project's focus is controlled interactions in ultra-cold atomic gases. This dissertation research addresses several important issues. Among them are the temperature level required to create a super-fluid Fermi gas, the effects on molecular formation within a condensed Bose gas, and exploitation of the generated molecules. ENS' Laboratoire Kastler Brossel is performing leading experiments directly related to the student's dissertation on the theoretical aspects of ultra-cold atomic gases. The experiments involve the use of novel double resonance that is fundamental to understanding the behavior of ultra-cold atomic gases.

This NSF award provides travel and living expenses for a four-month visit to France by Joshua Milstein and for his participation in an international conference in Spain on cold atomic gases.